Grant for Doctoral Consortium of the 2014 IEEE International Conference on Robotics and Automation (ICRA 2014)

This award supports U.S. Ph.D. student travel to a doctoral consortium held at ICRA 2014 in Hong Kong, China, from May 31 to June 7, 2014. The goal of the doctoral consortium is to highlight the research work of US Ph.D. students. This gives an opportunity for the students to interact with senior faculty and get feedback on their work. Participants and recipients of this travel support will be selected by the 2014 ICRA organizing committee based on their thesis work. Participating in a conference is a critical component of graduate student development. This award aims to have a diverse representation of participants in terms of gender, ethnic background, academic institution, and geographic location.